Purdue Instrument Van Project: A University/High School Collaboration for Enhancing Learning in the Laboratory

9353408 Morrison This five-year project will provide 120 secondary school biology and chemistry teachers, from Indianapolis and rural districts in Indiana, with workshop opportunities to gain content knowledge and skills in using modern laboratory instrumentation. In three week summer workshops, ten two- person teams of a biology and chemistry teacher from a district will use analytical instrumentation common to both disciplines and design laboratory curriculum modules using the instrumentation in their classroom. During a second summer these same teachers will attend another two-week workshop to learn new content, use of more instrumentation and to resolve problems they have encountered in classroom use of the instrumentation. Teachers may earn nine-credits for the first summer and six-credits for the second. A Chemobile will support the summer activities during the academic year. It is a van equipped with the instrumentation the teachers have used. It will deliver the instruments to local districts to support instruction in the teacher's classroom. Instrumentation in the van is provided by Purdue University. The van driver is a teacher qualified to use the instruments and provide appropriate on-site instructional support. Indianapolis schools will be further served by a Purdue Visitation Team composed of a university faculty member and an industrial scientist. The project builds on an earlier pilot project which served a limited number of chemistry teachers. ***